Proposal for a Newsletter on Collegiate Mathematics Education

The American Mathematical Society in a cooperative venture with the Mathematical Association of America and the Society of Industrial and Applied Mathematics will establish a collegiate mathematics education newsletter. Its purpose is to stimulate greater communication between research mathematicians, and collegiate mathematics educators. The newsletter will provide a balance of short, timely items directing readers to sources of further information, and longer, more substantive articles presenting discussion of important issues in collegiate mathematics education. The newsletter will include articles on mathematics curriculum, innovative teaching methods, funding for collegiate math education, outside classroom activities, profiles of successful math programs, information on conferences, workshops, courses, use of technology, review of international activities, review of information in other publications, and a column for queries.